Organizational Support to the U.S. Arctic Science Program

The Arctic Research Consortium of the United States (ARCUS) is to provide organizational support for Arctic sciences to develop, promote, and implement arctic research and education by nurturing the orderly growth of arctic research through tasks that cannot be accomplished as effectively by individual researchers, institutions, agencies, or by currently existing advisory bodies.

Specifically, they will provide services in four areas. They are:
o Arctic science planning-coordinating science planning for the arctic research community at several levels, including continuing examination of logistical requirements with the goal of improved access for all researchers in the Arctic;
o Organizational support for research programs included in the Office of Polar Programs Arctic Sciences Section-the Arctic System Science Program (ARCSS), the Arctic Social Sciences Program (ASSP), and the Arctic Natural Sciences Program (ANS);
o Development and coordination of arctic science educational activities; and
o Information and outreach activities to disseminate information about arctic research to the scientific community, policy and decision-makers, and to the public.